Role of Predation and Plant-Small Mammal Interactions in the Chilean Mediterranean Scrub Zone

9318565 Meserve This project investigates the response of small mammals and perennial and annual plant populations to natural variation in weather conditions and to manipulations of predator and herbivore densities in a Chilean semiarid thorn scrub. The research provides a unique set of long-term population data for small mammals in the arid tropics as well as data on their effects on plant populations. The manipulative experiments of small mammal and predator densities in combination with annual weather variation (including an El Nino event) provide unique insights into the interactive effects of biotic and abiotic factors on natural populations of mammals and plants. %%% This research is important because it provides some of the first long-term data on the response of mammal and plant populations to short-term climate change in the arid tropics. The results of this research will improve our abilities to understand the ecological consequences of anthropogenic climate change. ***